Galois Groups and Fundamental Groups

9970481
Harbater

This project concerns Galois covers and fundamental groups of affine
varieties, especially in finite characteristic. The main goal is to
generalize and strengthen the result of Abhyankar's Conjecture, which was
proven by Raynaud and the Principal Investigator. That result classified
the Galois groups of unramified covers of affine curves over an
algebraically closed field of finite characteristic. By strengthening
this conjecture, more understanding would be achieved of how the Galois
covers of a given curve fit together, and thus about the structure of the
fundamental group. By generalizing the conjecture, results would be
obtained about Galois groups over affine varieties in higher dimensions,
and over curves defined over more general base fields. Methods will
include formal patching, specialization, cohomology, and the theory of
profinite groups.

The subject area of this project brings together two areas of mathematics
that each concern symmetry -- symmetry in algebra, in the case of Galois
theory; and symmetry in geometry, in the case of fundamental groups. In
each of these two situations, mathematical objects can be studied by
examining the forms that their symmetries can take. The connection
between the two settings arises from the fact that geometric spaces can be
described by algebraic equations, and those equations can be studied by
Galois theory. The symmetries of the equations then relate to fundamental
groups of geometric spaces. A problem that is posed in either of these
two settings can then be translated into a problem in the other setting,
where other techniques can be applied in order to provide a solution.
This project concerns how these two situations can interact, so that
algebra can be used in the service of geometry, and vice versa, in order
to study problems that would otherwise be intractable.